Radiogenic Isotope Characteristics of Late Cretaceous and Tertiary Igneous Rocks Across the Southern Margin of the North American Craton, Northern Sierra Madre Occidental, MX

9705773 McDowell A number of important tectonic features of the southwestern United States extend into Mexico, however these become buried under the vast igneous province of the Sierra Madre Occidental. These features include the southern extent of the North American craton, a late proterozoic rifted margin, younger juvenile crust and the southeastward continuation of the Mojave-Sonora megashear. Several recent tectonic syntheses reconstructing plate positions between south and north America require knowledge of the location of these features now covered by volcanics to discriminate between models. The project will utilize isotopic contamination of the younger volcanics as an indicator of the character of the wall rocks during magma ascent. Results should help to better locate important tectonic boundaries and other features, now inaccessible under the thick volcanics pile.